AGEP Post-Doctoral Engineering Education Researchers (AGEP PEERs)

AGEP Post-doctoral Engineering Education Researchers (AGEP PEERs)
Under the terms of Master Agreement No. 0239565 for unsolicited proposals, the National
Academy of Sciences requests funds to support four (4) Alliances for Graduate Education
and the Professoriate (AGEP) alumni per year over a three-year period as post-doctoral
fellows in further preparation for their practice of engineering education research as faculty
members at the Nation.s leading universities. These AGEP alumni will be referred to as
AGEP Post-doctoral Engineering Education Researchers (AGEP PEERs) and will contribute
to the production of faculty peers of unquestioned excellence in the multiple forms of
scholarship required for faculty for the 21st Century. The work will be performed by the
Center for the Advancement of Scholarship on Engineering Education of the National
Academy of Engineering. The outcomes of this effort will be
1. Identification and placement of 12 AGEP alumni at engineering education research
centers for 12-month post-doctoral research experiences focused on engineering
education with expectation of resulting publication.
2. Attendance of an annual Fellows meeting by current and former AGEP PEERs to build
community and leverage individual experiences.
3. Attendance of up to 3 additional professional meetings by each AGEP PEER to establish
a presence in their professional community.
Intellectual Merit
This effort seeks to strengthen the human infrastructure and diversity of the professoriate by
linking AGEP alumni with premier centers of engineering education research. This effort
complements the disciplinary expertise AGEP fellows have developed within their doctoral
program by building their skills in the scholarship of teaching and learning. Thus, this project
advances the integration of research and education.
Broader Impacts
Successful completion of this project will contribute to the establishment of a cadre of new
minority faculty well prepared for excellence in both research and education. Their skills will
serve to inspire their peers as well as new generations of scholars from all groups and
populations. Additionally, greater awareness of the rigor and applicability of education research
by engineering faculty will contribute to more inclusive definitions of faculty scholarship and a
beneficial modification of engineering faculty tenure and promotion systems.